CAREER: Multithreaded Algorithms, Models, and Runtime System Tools for Multimedia Applications

Proposal Number: CCR9875662

CAREER: Multithreaded Algorithms, Models, and Runtime System Tools
for Multimedia Applications

PI: Ashfaq A. Khokhar

This project deals with the design and development of parallel
algorithms, computation model, and runtime support tools for efficient
execution of multimedia applications on multithreaded computing
platforms. In particular, applications that employ irregular
computation structures and data dependent communication patterns are
studied and used as a vehicle to investigate algorithmic and
implementation issues related to multithreaded computing. While
existing computation models lack in capturing the architectural and
computation characteristics of the multithreaded paradigms, a new
model is investigated to be used as a platform for algorithms'
development. Load adaptive parallel algorithms and implementations are
developed by taking advantage of the computation and communication
overlapping characteristics of the multithreaded computing
paradigm. The executions of the programs based on the proposed
algorithms are supported by dynamic schedulers and load balancers
designed as runtime support tools. The application area focussed in
this project consists of multimedia signal/image processing
applications, particularly those based on non-linear signal processing
techniques. This project has a wide-spread impact on real-time
multimedia processing tasks in defense, scientific and commercial
applications.